Stratification and Buoyancy Reversal in Buoyant Flows

Laboratory experiments will be used to measure the entrainment and mixing characteristics of thermals and plumes in a stratified environment, including the influence of simulated evaporative cooling. The experiments will be performed in a large tank, using fluorescent and regular ph indicators and acid- base reactions to optically determine mixing location and amount. Characterization of the detrained fluid and the mixing near an inversion will also be focal points of the research. Earlier work has established both the techniques and the mixing behavior in the absence of stratification. This work would help to address important questions in cloud physics by providing a strong foundation of fundamental results for the simplest, idealized cases.//